Summer Science Camp: Yukon Delta Environmental Education Camp

This summer residential camp which accommodates 30 ninth grade Native Alaskans per year, is located in a remote site near Bethel, Alaska, in the heart of the Yukon Delta National Wildlife Refuge. This is an area with a great need for the collection of basic biological data. Students will be immersed in a variety of research projects, collecting needed data to answer existing questions. program staff and the Native Elders- in-Residence will help stimulate questions and provide insight into the natural history of the area. Students will prepare a final report of their research and will also visit an actual field research station and assist with activities there.